Ninth Southwestern Developmental Biology Conference March 21-23, 1991; College Station, TX

The Ninth Southwestern Developmental Biology Conference will be held March 21-23, 1991 in College Station, Texas. The meeting is sponsored by the Society for Developmental Biology, which states in its guidelines: "Regional meetings are an important activity of the Society...The function of the Regional Conference is to provide a more informal opportunity than national meetings for the exchange of information on development. participation by graduate students, postdoctorals and junior faculty is particularly encouraged..." The meeting will adhere to this goal. This will be achieved by inviting three prominent speakers to present different aspects of "Epigenesis". In addition, developmental biologists from the Southwestern region will be encouraged to present recent and preliminary findings from their laboratories. Such an arrangement will give the students in the Southwest an opportunity to give a talk, meet investigators from a specialized discipline, and to increase their knowledge about the range of research projects pursued in their own geographic region.